Leading the Way To Systemic Change - the Roles of Mathematics Teacher Educators

9450361 Leitzell A workshop at the University of Nebraska, Lincoln, on June 2-4, 1994, is open to teams of faculty from regional institutions with pre-service teacher preparation programs. All teacher preparation institutions in the nine state area of Nebraska, Colorado, South Dakota, Montana, Iowa, Minnesota, Kansas, Missouri, and Wyoming are invited to send teams of four faculty, with at least one in mathematics and one in mathematics education; other members of the team may represent these areas or be administrators with interest in pre-service preparation of teachers of mathematics. Sessions of the workshop address the various roles mathematics teacher educators play in moving toward systemic change in mathematics education. Of particular emphasis, both in selecting participants and in organizing the content of the sessions, is the joint responsibility mathematical sciences and mathematics education faculty share in the pre- service and continuing mathematical education of teachers of school mathematics. Working together these teacher educators can reshape in a powerful way the undergraduate curriculum in mathematics and have a strong impact on state policies regarding initial certification, the development of frameworks, and programs for additional endorsements. Mathematics teacher educators also need to play more visible roles in Statewide Systemic Initiatives efforts, State Coalitions sponsored by the Mathematical Sciences Education Board, and state affiliates of national professional associations. Workshop sessions feature speakers as well as working groups of institutional teams. Speakers and advisory committee members will be available as consultants. Participants develop a set of planned activities to be undertaken during the 1994-1995 academic year. During late spring and summer of 1995, the outcomes from these activities will be collected, compiled, and disseminated to all participants and others interested in the revitaliza tion of undergraduate mathematics education. ***